NSFNET Connection

9402542 Woodriff This project connects Menlo College to NSFNET over a 128,000 bits per second line through BARRNET. Faculty and students at the school benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.